Track 1, GK-12: Engineering as a Contextual Vehicle for Science and Mathematics Education

This proposal describes a Track 1 project developed by Drexel University entitled, "GK-12: Engineering as a Contextual Vehicle for Science and Mathematics Education", that will form a collaboration between education teams of graduate students (GK-12 Fellows) and middle school teachers from the School District of Philadelphia (GK-12 Teachers) to identify and design engineering/technology based supportive classroom materials. These materials will serve as contextual vehicles through which the presentation of fundamental scientific and mathematical concepts to middle school students will be enhanced.